Inference About Predictive Accuracy; Exchange Rate Volatility: Inventory Models

9309927 West Data-mining or over-fitting, perhaps as a result of repeated profession-wide use of a limited body of data, leads at times to spuriously good in sample fits. Some economists have argued that out of sample predictive accuracy is the critical measure of model quality. Unfortunately most empirical work in economics relies mainly on in-sample evidence. Many of the out of sample tests of predictions and predictive accuracy are informal and qualitative in part because applied researchers find procedures developed to date inadequate. Procedures that have worked well in sample also do not appear to work well out of sample. One contribution of this project comes from developing new procedures for econometric inference about out of sample predictions and prediction errors general enough to be useful in a wide range of applications, including eventually models of the socioeconomic impacts of global environmental change. An earlier study found that complicated models of exchange rates with good in-sample fit do no better than a random walk model in out of sample predictions. This project uses these procedures to study the predictive ability of competing models of exchange rate volatility and develops alternative models, including one that links exchange rates to interest rates. The final area of research for this project is on empirical inventory models. In one part of the research, asymptotic theory and simulation methods will be used to evaluate alternative methods for estimating inventory models. Issues include sensitivity to normalization, finite sample behavior of efficient GMM estimators, and the tradeoff between what has been called "exogeneity" and "relevance" in choice of instruments. The results will be relevant in estimation of not just inventory but other time series models as well. In a second part, inventory models will be estimated on two digit U.S., U.K., Canadian and Japanese data, using the results of the first part. Questi ons to be studied include convexity of cost functions, dynamic responses to shocks, and the importance of idiosyncratic versus aggregate shocks.